IDEA: Integrated Decomposition for Enterprise Analysis

This project identifies a new class of stochastic programs referred to as
"Distributed Stochastic Programs," and develops computational approaches
for their solution. The methodology to be studied involves a marriage of the
"Lagrangean Decomposition" method of Guignard and Kim with the "Stochastic
Decomposition" methods of Higle and Sen. The primary motivation is the study of
integrated models and solution methods for enterprise-based decision making
under uncertainty. An enterprise-based model is one that couples a variety of
component problems that are associated with different entities within the
enterprise. Of necessity these component problems, which will typically reflect
operational concerns,are finely detailed. Their individual solutions often
require highly specialized computational approaches that challenge current
computing resources. As a result, their direct incorporation within an
enterprise-based model would likely lead to a model that greatly exceeds
current computational capabilities. To remedy this situation, this
project advocates the use of surrogate models of the component problems
that reflect the uncertainty associated with the day-to-day operations,
and are combined in a manner that permits guidance for strategic decisions.
A primary goal of this project is the development of solution methods for
the resulting class of problems based on decomposition schemes that exploit
the general structure of the enterprise model.

Over the past few years, the need to incorporate uncertainty
within complex business environments has become increasingly
obvious. Many firms have invested a great deal of time and
resources in developing models that can be used to assist with
operational decision making. For example, airlines typically use
sophisticated models to assist with their air fleet assignments, crew
scheduling, maintenance schedules, etc. In addition to these
types of operational decisions, firms also undertake strategic, or
long-term, decisions, such as when an airline determines
what markets it will serve. In general, these strategic decisions
impact the operational decisions, although neither this impact nor
the uncertainty associated with day-to-day operational decisions is
typically captured within the enterprise's strategic decision model.
This project involves an exploration of integrated models and
solution methods for enterprise-based decision making under uncertainty.